Presidential Faculty Fellow: Architectural Requirements of Parallel Languages

This research involves computer architecture, compilation, and operating systems work focused on broad application of massively parallel computing. The approach is to identify minimal architectural changes and aggressively push compilation techniques to handle asynchronous communication and scheduling for parallel languages. Current demonstration of methods include compilation of Id90 for conventional architectures plus active messages.